Eastern United States Climate and Atlantic Sea Surface Temperatures

Abstract ATM-9714762 Robinson, David A. Rutgers University Title: Eastern United States Climate and Atlantic Sea Surface Temperature This proposal is for a comprehensive investigation, for all four seasons, of linkages between the western North Atlantic Sea Surface Temperature (SSTAs) and regional scale climate anomalies in the eastern United States. The proposal aims at identifying and diagnosing, by a combination of methods, anomalies of temperature, precipitation, and snowfall associated with certain SSTA patterns. Results of the proposed research will lead to better understanding and prediction of the climate of the densely populated eastern seaboard.`